GOALI: Stabilization/Solidification and Possible Catalytic Destruction of Organic Wastes Using Reactivated Carbon

Bishop 9630739 This is an award the objective of which is to determine the feasibility of using regenerated activated carbon, catalyst- impregnated activated carbon and Portland cement to solidify and stabilize contaminated soils and hazardous wastes containing potential environmental contaminants. The regenerated carbon is derived from processes to remove contaminants from water but which has become unsuitable for reuse in the process from which it has been derived. The research involves determination of the extent to which the solidification process results in the immobilization of the contaminants. The proposal leading to this award was submitted under guidelines contained in NSF 95-111, Grant Opportunities for Academic Liaison With Industry. The industrial partners in conduct of this project are the Calgon Corporation and E.I. DuPont de Nemours and Company. Results of this project are expected to provide the engineering design basis for use of spent activated carbon that can no longer be sufficiently reactivated for reuse in the process from which they were derived to adsorb and immobilize contaminants in sludges and soil. The use of spent activated carbon in this process provides a potential use for a large quantities of spent activated carbon that would otherwise be managed by incineration or placement in secure repositories for hazardous substances.